Global Change Education for Elementary and Secondary Learners

9550129 Hug For more than 50 years, Ohio has had a program of environmental education and the Ohio Department of Education has had a staff member assigned to this program. In 1994, the State adopted a competency-based science education program and in 1995 they will publish instructional objectives for social studies that will allow for school curriculum development committees to design interdisciplinary Global Chang Education curriculum. Selected science and social studies objectives can be achieved simultaneously. Global change topics that can be included in the curriculum include decline of songbird populations in Central and North America, destruction of rainforests, pressure on natural resources of population growth, destructive effects of acid rain, the consequences of desertification or desertization, depletion of upper atmospheric ozone, among others. By means of this planning grant, they will address the need for a systematic, comprehensive implementation of these global issues as they relate to and accomplish the instructional objectives of science in the elementary and secondary curricula. The goals of the planning project are to 1) carry out an awareness program to spread the information about this effort to elementary and secondary school educators, 2) to compile a status report of Global Change Education activities which currently exist in Ohio, 3) to develop a Global Change Education Model that will become one of ten educational reform models that are available to individual schools as the basis for their Venture Capital program (this is a special instate program from which school can receive up to $25,000 for five years to institutionalize reform programs), and 4) to file a final report to NSF which will also serve as the guide to implementing the Global Change Education Model. Cost sharing is 52% and comes from in-kind contributions made by the Ohio Department of Education.